Rapid Design Through Virtual and Physical Prototyping

This project is creating an experimental system using the Internet that will allow students in design courses to use rapid prototyping services. Three participant institutions, Carnegie-Mellon University, the University of California at Berkeley, and Stanford University are participating in the project. Each has developed individual technologies for virtual and physical prototyping, which currently stand alone. Bringing these technologies together will result in exciting new capabilities. Partnerships with industrial partners and a Federal laboratory are also anticipated. This project addresses key issues in prototyping, and is creating a network of interconnected services to support the rapid design, test, and manufacture of mechanical, electro-mechanical, and electronic products.